Chapman Conference on the Comparative Study of Venus and Mars: Atmospheres, Ionospheres and Solar Wind Interactions

Funds are requested to support student travel to the named conference. This conference concerns interactions of the solar wind with the Earth-like planets Venus and Mars, which relates solar-terrestrial and aeronomic problems. Five named students have been selected to receive grants for travel to and participation in this conference.***//